Optical Remote Sensing and Identification of Air Borne Insects

Optical intensity fluctuations of the solar disc have been investigated in the frequency range from 20 Hz to 15 kHz over a number of years with a detection system capable of detecting fluctuations on the order of 10-9 times the solar constant. One important transient which may be recorded in this frequency band are high flying insects crossing the angular diameter of the solar disc as seen by the small detector. Tests have shown that this detector is capable of detecting individual insects from the meter range to beyond the kilometer range. The purpose of the planned research will be to determine if this method, of optical remote sensing, may be used to identify the species of individual air borne insects. The cross correlation of the power spectra of insect species will be used to determine the accuracy and potential of this method.